GEM: Self-Consistent Modeling of Inner Magnetospheric Plasma Energization and Disturbances

The proposed research program will study the substorm injection process by examining particle drifts in realistic magnetic fields. The study will develop a self-consistent picture of the evolution of the fields, currents, and pressures in the magnetosphere during a substorm. The Magnetosphere Specification Model will be modified to allow the boundary conditions to be varied in time so that conditions appropriate to the various states in a substorm can be simulated and compared with observations. The effects of current systems on the magnetic field structure will be incorporated self-consistently. Other refinements will also be added, including diffusion and losses due to wave-particle interactions, and the effect of particle precipitation on ionospheric conductivities.